Engineering Equipment Grant: GC-MS-MS Flow Reactor System for Study and Measurement of Toxic Byproducts in Combustion Effluents and Residues

Abstract
CTS-9905019
S. Sidhu/University of Dayton

A gas chromatograph/mass spectrometer/mass spectrometer (GC-MS-MS) system incorporating ion-trap detection is acquired and incorporated into existing flow reactor systems for the study of thermal reactions of hazardous wastes and hazardous materials and analysis of trace reaction products in complex media.